Conference on Gravitation and Cosmology, December 1987, Goa, India, Group Travel Award in Indian Currency

Project Description: This project provides support for 15 U.S. scientists to participate in an international conference on gravitation and cosmology to be held in Goa, India, 14-19 December 1987. The meeting is sponsored by the Indian Association for General Relativity and Gravitation, in cooperation with the International Centre for Theoretical Physics, Trieste, and with major scientific institutions in India engaged in research in this area. Topics to be covered include spacetime structure, exact solutions, relativistic astrophysics, gravitational experiments, gravitational radiation, cosmology, the early universe, quantum fields in curved spacetimes, quantum gravity and new directions in gravitation theory. Project Significance: The conference deals with an area of science where major developments have taken place recently. These developments have made interactions with Indian scientists important since India has a distinguished tradition in the area of general relativity and there are a number of first rate scientists in this area working there now. The speakers are very distinguished scientists from the U.S. and from India on the subjects of general relativity, cosmology, particle physics and astrophysics. The exchange of information is timely and useful for the U.S. and Indian participants and could lead to cooperation in research.